ASPIN: Innovative K-12 Connectivity with CATV

This award is made under the innovative technology connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64, which covers K-12 education institutions (including vocational technical schools), public libraries and museums. It provides partial support for one year to establish cable television connections to four Phoenix inner-city schools.